Track 2, GK-12: Teaching the Science in Everyday Life

This proposal describes a Track 2 project developed by University of Arkansas in collaboration with Arkansas Middle Schools. The Track 1 project was an interdisciplinary program called KIDS (K-12, I Do Science) focused on bringing science to real life. The Graduate Fellows trained in Nanosciences worked in collaboration with middle school teachers to demonstrate that students learn by doing. In this Track 2 proposal, PIs demonstrated the accomplishment of the Track 1 phase by including quantitative data about outcomes for Fellows, teachers and students, disseminating the results and also by indicating ways of sustaining the project beyond NSF funding. The primary goal of Track 2 is to build on the infrastructure of Track 1 by implementing a five-year plan to sustain the project.